Workshop on the Continental Margins: Evolution of Passive Continental Margins and Active Marginal Processes

The Ocean Studies Board (OSB) of the National Academy of Sciences (NAS) will convene a Workshop on Continental Margins in late 1988 to compare the tectonics and evolution of active and passive continental margins. The workshop will be divided into two parts. The first will focus on evolution of passive continental margins. This section of the workshop will consider mechanics of rifting of the lithosphere; magmatic proces- ses associated with continental rifts and passive margins; sequences and morphology of rifts and passive margins; and sedimentary deposition at passive margins. The second part will focus on active marginal processes and will address convergent plate margin mechanics and evolution of active plate margin crust and mantle. The study of convergent plate margin mechanics will consider displacements, seismicity, and deformation at convergent bound- aries; mechanics of transform faults; subduction mechanics; and geometry and deformation of accretionary wedges. The study of evolution of ac- tive plate margins will consider initiation of convergence; tectonic evolution of intra-oceanic island arcs and back-arc basins; accreted terrains; and fates of subducted materials. Eighty scientists will participate in the workshop with support from a group of Federal agencies. The deliberations of the workshop will be summarized in a "Proceedings" report which will be widely ditributed to the sponsoring agencies and the scientific community.